Engine-Oil Analysis Sensor

9361414 Hilliard The useful life of engine oil is known to be highly dependent on formulation and the engine operating mode. Consequently, an oil- change interval based on miles traveled or engine operating hours does not necessarily define the in-service quality of the oil. One problem in particular for diesel engines is that oil dispersancy can fail very rapidly, this enables the suspended soot particles to "gel" the oil even when the actual suspended soot particles are only present at a 1% to 2% (w/v) concentration. The result of gelling is increased viscosity, poor cold-start protection, more soot abrasion wear and loss of lubricity. Dispersancy of an oil can be lost when all other oil properties, eg. oxidative resistance, are still 90% intact. Some engine operating schedules - notably high-load to low-load excursions - can lead to total dispersancy loss in less than 100 hours of operation. The proposed Phase 1 research is directed at using scattering of intra-red radiation as a means of detecting the transition from well-dispersed particles to the agglomerates that form as dispersancy fails. The wavelength source is chosen to match the effective scattering diameter of the particles and agglomerates in such a way that the transition can be detected as a deviation from classical Rayleigh scattering behavior. ***